Structured Design Methods for MEMS

This research is on developing structured design methods for Micro-Electrical- Mechanical Systems (MEMS). The focus is on MEMS fabrication process simulation and mask-layout synthesis. In analogy to present-day VLSI design, tools to permit rapid, accurate, conservative mask layout synthesis of MEMS are being explored. The objective for the tools is to enable a MEMS designer to specify a desire micro-mechanical function (e.g., a mechanical spring with particular characteristics), and have a system automatically generate the information (mask- layout, and other fabrication instructions) to create the shape that exhibits the desired function. This would includes refining and extending the 3-D anisotropic etch simulation methods. Prototype software design tools are being developed.